High Field NMR for the Improvement of Undergraduate Instruction and Research

This project concerns the incorporation of a high field, Fourier Transform nuclear magnetic resonance spectrometer for the improvement of undergraduate laboratory instruction and research. The instrument is being used heavily in sophomore organic chemistry for acquiring spectra in conjunction with organic synthesis and product identification. NMR spectroscopy is also an important component of the following junior and senior level laboratory courses: physical chemistry, instrumental analysis, advanced inorganic chemistry, biochemistry, and organic spectroscopy. Advanced applications such as the inversion- recovery pulse sequence, variable temperature line-shape analysis, the nuclear Overhauser effect, and various 2-D spectroscopy techniques have been introduced. The NMR is also being used in numerous faculty sponsored undergraduate research projects. The institution has contributed to this project an amount exceeding the NSF funds by approximately 11%.